Laser Cooling and Optical Properties of Degenerate Atomic Systems

9421116 Javanainen Computational methods for semiclassical laser spectroscopy and semiclassical and fully quantal theories of laser cooling and trapping will be developed and applied. Optical manifestations of particle statistics will also be investigated in order to better understand Bose-Einstein condensation in a cooled, trapped gas. ***